International Travel Grant to Italian Seminars on ReinforcedMasonry Structures, in Rome, Italy, October 7-12, 1991

This is an International Travel Grant to support the Principal Investigator's travel to and participation at a series of seminar meetings in Italy: "Italian Seminars on Reinforced Masonry Structures", Naples, Ancona, Udine, and Vicenza, Italy, October 7-12, 1991, CONZORSIO POROTON ITALIA in Vicenza. Participation at the seminars will enable the Principal Investigator to present an invited paper entitled "Recent Reinforced Masonry Shear Wall Research in the United States". At the seminar series, the Principal Investigator will be presenting specific results developed within the NSF sponsored and coordinated "TCCMAR Masonry Research Program". This effort will also provide the opportunity to further develop research cooperation between the U.S. and Italy in areas of advanced technologies involving masonry construction and seismic design.